Collaborative Research: High-Performance Computational Methods for Continuous-Time Markov Processes in Financial Engineering

The project focuses on the development of high-performance computational
tools for financial engineering. The goal is to develop computational
methods to evaluate complex financial products used to manage foreign
exchange, interest rate, equity, commodity and energy price risks and credit
risk, and manage large portfolios of assets. The methodology is based on
extensions to financial engineering of finite-element methods successfully
used in diverse branches of engineering to solve numerically multi-
dimensional partial differential and integral equations. Partial integro-
differential equations arise in the study of Markov jump-diffusion processes
and associated optimal stopping and stochastic control problems in financial
engineering. The aim of the present proposal is to develop both the
necessary mathematical theory to extend finite element methods to jump-
diffusion processes and develop high-performance computational tools
based on these methods that can be effectively implemented and used by
industry practitioners in the financial services, as well as researchers in
financial engineering, applied probability and branches of operations
research that use continuous-time Markov processes. Specific challenges in
financial engineering to be addressed in the project include high
dimensionality and jumps.

Methodologies developed in this project will help financial institutions,
corporate treasuries and energy companies accurately value complex
financial instruments, efficiently manage risk of financial transactions, and
dynamically manage portfolios of assets. In addition to financial
engineering, we anticipate that this project will have a broader impact on
research and application areas that use continuous-time Markov processes as
a modeling framework. Constructive approximations and computational
algorithms for jump-diffusion processes developed in this project should
prove useful for diverse areas of application that use jump-diffusion
processes. This proposal will support the new Ph.D. major in financial
engineering at Northwestern University. This new Ph.D. major will result in
training of highly qualified researchers in financial engineering. This project
is a part of the long-term development effort at Northwestern University in
the area of financial engineering. This project will also help the Department
of Mathematical Sciences at the University of Nevada Las Vegas establish a
research program in financial mathematics.